Engineering Research Equipment: Catalytic Reaction System for Synchrotron X-ray Source

ABSTRACT Harold Kung A catalytic reaction system suitable for use in a synchrotron X-ray beam is constructed. The system is to be used by the duPont-Norhwestern-Dow collaboration access team at the Advanced Photon Source (APS) at Argonne National Laboratory. The reactor system is equipped with a gas chromatograph and a mass spectrometer, and is serviced by a gas manifold capable of handling up to eight gases by remote control. It is to be used for in situ studies of catalytic reactions and structural studies of catalysts and catalyst precursors including vanadium-phosphorus oxides, transition-metal-promoted rhodium, copper-zinc oxide, supported palladium, microporous redox systems, and zeolites. ***